FOR SEA: Revision and CD-ROM Expansion

Three successful marine science curricula and teacher training packages, For Sea, Mare, and Living in Water, developed by the Marine Science Center, the Lawrence Hall of Science, and the National Aquarium in Baltimore, will be refined and enhanced in preparation for the production of two, multimedia compact discs (CD ROM). Advances in CD ROM technology coupled with increasing accessibility to the technology, make the compact disc an effective tool for curriculum development, utilization, and distribution. The compact disc will contain all text and graphic images from the three curricular projects; and, a comprehensive indexing system allowing materials to be utilized in a variety of manners, including thematically and topically, to effect curriculum integration. Training will be provided to an existing cadre of teacher trainers to maximize the implementation of the new curriculum and CD ROM disc.